Learning Efficient Recognizers for Analytically Derived Concepts (Computer and Information Science)

This research develops artificial intelligence methods for the automatic formulation and use of concepts by computer systems. In particular, techniques which enable a machine to develop concepts based on its ability to "explain" instances presented to it are combined with methods to rapidly "classify" new instances into one of its learned categories. The goal is to convert the machine's inefficient but correct "explanation" procedures into efficient classification routines. Methods used will include both symbol-processing strategies and newer, "connectionist" approaches. The importance of this research is that exploratory artificial intelligence programs, now capable of some limited learning, must be substantially improved. In particular, artificial intelligence systems must be developed to both learn new categories (concepts) efficiently and apply these categories rapidly when presented with a high rate of data and new experience.